Size structure and function of phytoplankton communities in a changing ocean

Phytoplankton form the base of the marine food web and are a crucial component in the global carbon cycle. They are also extremely diverse, with different species ranging widely in size, biochemical functions, and light and temperature requirements. How phytoplankton establish communities (mixtures of the different species living in the same place) and how these vary between regions and with time is poorly known. Community structure is important for the type of food webs they can support and the amount of carbon they sequester in the ocean. The diversity within the community may also be essential for stability of the ecosystems under changing environmental conditions. Computer models, grounded by observations, provide an important tool to explore marine ecosystems. Current models however include very limited diversity of phytoplankton, focusing on either their differences in size or function, but not both. This new modelling effort will incorporate substantially more diversity and therefore be able to address how and why different groups of phytoplankton co-exist in space and time and how their community structures change in altered environments. This study will be enhanced by new international collaborations with experts in France and Canada. An ongoing collaboration with the San Francisco Exploratorium and its Living Liquid display will be significantly enhanced as part of the Broader Impacts. This installation is a large touch screen table that allows museum visitors to make their own discoveries about phytoplankton diversity through interaction with the model output. The software developed as part of this project will be freely available, and visualizations of the results will provide unique outreach tools.

This unique global modelling effort plans to incorporate multiple dimensions of trait space: size, biochemical function, and adaptation to light and temperature. The new model will be tested and constrained by compiling existing and new empirical data sets. It will then be used to explore how community structure and biogeochemical impact are controlled by the interplay of both organism functional and size trait. In particular the model will be used to explore how the diverse community structure is significant in regulating the resilience of ecosystem structure and function to global change. The compiled data, model, as well as theoretical frameworks will address the hypotheses: 1) a model with multiple dimensions of traits will provide more realistic complex community structures, with a size range within functional groups, and more co-existence between functional groups; 2) community structure will be driven by grazing control within functional groups, but nutrients supply rates will control functional group ranges; 3) patterns of carbon export will be significantly more complex when both size distribution of overlying communities and ballasting by minerals such as calcium carbonate and opal are taken into account; 4) climate change will lead to regionally varying patterns of size shifts within functional groups or shifts between functional groups, and such changes will lead to varying alterations to carbon export fluxes; and 5) the inclusion of size will lead to more stable ecosystems in terms of productivity and export to climate change perturbations.